Construction of a Micro-Sample BRF5 Reaction System

This award provides one-half the funds necessary to construct a micro-sampling system for the extraction of oxygen from silicates for isotopic analysis. The system will be attached to a mass spectrometer in the Department of Geosciences at the Pennsylvania State University. The University will provide the remaining funds for the project. The micro-sampling system will permit oxygen isotope analysis of sub-milligram samples and the in situ study of isotope gradients on the millimeter scale. The improved micro- sampling system will be applied to the isotopic analysis of diamonds and other mantle-derived minerals.